Visualization: Plenoptic Opacity Function for Large Date Visualization

The gigabytes to terabytes of data now being produced by scientific and medical
applications on a routine basis create a pressing demand for capable visualization
tools. One of the key problems hindering the development of such tools is the
growing disparity between the available system bandwidth and the total need of
data access during interactive rendering of these large data sets. Unfortunately,
such scarcity of physical bandwidth persists in spite of repeated efforts to
accelerate I/O subsystems. Complementary to those continued efforts in increasing
I/O performance, this project focuses on intelligently decreasing the need of
data access using a unique, coarse-grained method of visibility culling.

Visibility culling aims at eliminating unnecessary visualization computation by
focusing on parts of the data that are visible from a specific view, culling
occluded portions, which may be substantial, in the early stages of the
visualization pipeline. Although visibility culling has previously been done as
a by-product of the rendering process, it has yet to be explored as an independent
technique for attacking the bandwidth bottleneck. For that purpose, the project we
propose here will focus on the discovery and development of new visibility culling
algorithms that are generic, scalable and efficient. Our key concept is to encode
meta-opacity via precomputation. In any volume each voxel has a predetermined
value of opacity. During rendering, a sequence of voxels is composited in depth
order to form a view-dependent opacity value, called meta-opacity, for each ray
segment. We hypothesize that there exists a way to conservatively and efficiently
encode meta-opacity of a convex-shaped volume block for a range of views under a
family of transfer functions via a one-time pre-computation. We call such encoding
the Plenoptic Opacity Function (POF). Using POF for conservative run-time opacity
estimation, great accelerations by visibility culling in volume rendering can be
accomplished while the transfer function can be modified within the same family on
the fly. Here we test this hypothesis and apply POF to volume rendering in
large-scale parallelism, as well as out-of-core visualization.